REU Site: Research Opportunities for Undergraduate Students in Laboratory and Space Physics at NASA Goddard Space Flight Center

The investigators will provide opportunities for undergraduate students to be active participants in solar physics related research in the Laboratory for Astronomy and Space Physics (LASP) at the NASA Goddard Space Flight Center. The main effort is to organize and supervise a summer internship program at Goddard. Each year the investigators will recruit students, beginning in August, for the following year's program. During the months of April and May, the investigators will match the student applicants with mentors and projects available at Goddard. Students will begin to arrive for their twelve-week internships around mid-May. The ten-week period beginning with Memorial Day comprises the core of the program.